Research Experiences for Undergraduates in Physics and Engineering at Hope College

A summer research program in Physics and Astronomy at the University of Oklahoma will provide undergraduates with an opportunity to materially participate in scientific research. Ten external students will be funded by the REU site grant and at least five internal students will be funded by a variety of sources within the University. A biweekly seminar series with strong emphasis on student participation and interaction with faculty and graduate students will enable the participants to gain the most benefit from their research experience. A distinguishing feature of the program will be the exposure of all student participants to both theoretical and experimental research in four distinct but well focused areas: astrophysics, atomic and molecular; condensed matter, and particle physics. External students will be recruited nationally and regionally with emphasis on underrepresented groups and participants who otherwise lack opportunities for research experience. The goal of the program is to encourage and prepare students to seek further educational and career opportunities in physics and astronomy.